International Educational Achievement Association - General Assembly Meeting

This project is supported by an interagency agreement with the Department of Education. It is awarded to Columbia Teachers College to host the 1987 General Assembly meeting of the International Association for the Evaluation of Educational Achievement (IEA). IEA is a non-profit international educational research association that conducts multi-national studies of precollegiate achievement of students in various school subjects. The United States is one of the founding members of IEA and has participated in virtually all of its studies. The results of IEA studies have furnished important information to educators and policy-makers in the United States. The annual meeting of the General Assembly of IEA is where key decisions are made with regard to what studies will be undertaken, the nature of such studies, as well as to review current work and conduct organizational business. Countries take turns hosting IEA General Assembly meetings. Recent meetings have been held in New Zealand, Singapore, and the Netherlands. The United States last hosted an IEA General Assembly meeting in 1973. Since the United States has been a key member of IEA since its inception, hosting an IEA General Assembly meeting is one way of showing support for the organization. Also, by hosting a meeting in the United States, it will be possible for U.S. educators, researchers, and policy-makers to directly contribute to the work of the organization.